Chemical and Physical Consequences of Magma Injection in Submarine Hydrothermal Systems: Insights from Mathematical Modeling

9731494 Person This project involves the development of a new mathematical model capable of representing the circulation of sea water through mid-ocean ridge systems near shallow magma chambers. A unique feature of this model is its ability to represent seawater boiling and halite precipitation at high temperatures. This model will be used to study the chemical and isotopic evolution of a well studied mid-ocean ridge vent system at 9-10 N along the East Pacific Rise. This vent system was discovered and sampled shortly after the emplacement of a shallow magma body; its composition and temperature have changed dramatically over the past few years due to seawater boiling.